The Role of Organic Phosphorus in Nutrient Cycling, Early Diagenesis and Burial of Refractory Organic Matter

This project is designed to redress the scarcity of information on the composition, structure and cycling of compounds of marine sedimentary organic-P. Standard methods for isolating soluble organic-P are being coupled with analytical pyrolysis of the insoluble macromolecular fraction of organic-P, chromatographic (HPLC, GC) and direct spectroscopic (31P-NMR,MS) methods to characterize organic-P compounds in marine pore waters and sediments. Chemical structure and composition dictate whether organic-P compounds are labile or refractory with respect to microbially mediated degradation, and control recycling of sedimentary organic-P into the water column. Composition and chemical structure will therefore, in large part, control the ultimate burial rate of refractory organic-P. Construction of a material balance for the sedimentary organic-P reservoir based on detailed compositional/structural information of constituent organic-P compounds will permit documentation of the remineralization of the labile versus the refractory organic-P reservoirs.